"Isolation and Identification of Group I Introns in Cyanobacteria"

This is a Small Grant for Exploratory Research to examine the possibility that Group I introns exist in cyanobacteria. These introns have not been found to date in bacteria, although they have been demonstrated to exist in bacterial viruses. If preliminary evidence is confirmed and they are found, a survey of Group I introns will be done within distinct cyanobacterial groups. This research will provide data on the evolutionary relationships between cyanobacteria and chloroplasts of higher plants.